POWRE: Probabilistic Methods for Concurrency

EIA-0074909
Palamidessi, Catuscia
Pennsylvania State University

POWRE: Probabilistic Methods for Concurrency

The main objective of this proposal is to develop a probabilistic concurrent calculus, which is the study of its semantics, and formal methods for reasoning with implementation. Furthermore, such calculus will be used as an intermediate level for the implementation of the pi-calculus, a powerful formalism for the specification of concurrent systems with link mobility.